Computer Graphics in the Engineering Curriculum

Computer Graphics represents a new discipline in engineering curricula and a significant new tool for Engineering Design and Drafting. The two week seminar is incorporating 16 participants with the faculty continuing as their mentors both during and after the completion of the seminar. The seminar includes presentations, discussions, demonstrations and other forms of interaction between participants and faculty that aid in teaching and research in the area of Engineering and Computer Graphics. A follow-up meeting a year later at the annual ASEE Conference will include presentations of research papers initiated during the seminar and discussions of the course development efforts made by participants at their home institutions. This project attracts, interests, enlightens and initiates those experienced and promising undergraduate instructors teaching traditional Engineering Graphics, needing motivation, background and know-how in developing new Computer Graphics laboratories and applying leading-edge technology to the teaching of modern, CADD-based Engineering Graphics courses. Also, participants are motivated in becoming self-reliant in making their own research contributions to the field of Engineering Education. The home institutions are contributing the travel costs for their faculty to attend the meeting.